RUI: Rare and Forbidden Decays from Vector Mesons

9971970
Rubin
This proposal requests support for a group at the University of Richmond, a primarily undergraduate institution, to help complete the rare kaon decay experiment, E871: K_long to muon + electron, at the Brookhaven National Laboratory, to perform an R-zero hadron search experiment (BNL E935), to participate in a phi meson rare decay search (Thomas Jefferson National Accelerator Facility Experiment 94-016), and to study rare decays of the phi meson or the upsilon resonance. All of these projects involve similar experimental techniques in the search for very rare processes. The subject matter involves both Nuclear Physics and Elementary Particle Physics.